Travel To Attend: Lectures on Wastewater Reclamation and Reuse at the International Conference and Several Research Institutes in China on July 1-16, 1989

This is an award to support travel by the Principal Investigator to participate in the International Conference on Water and Wastewater to be held in Beijung, China from July 11-15, 1989. The investigator also plans to present a series of lectures at the Beijung Municipal Research Institute of Environmental Protection, Tianjin Institute of Environmental Protection and the Harbin Water Pollution Research Center. The paper to be presented by the Principal Investigator is co-authorized by Dr. George Tchobanoglous, University of California at Davis and is titled: Planning and Implementing of Wastewater Reuse at the Conference and in combination with lectures. The investigator plans to discuss research needs for potential use in planning research activities with special reference to cooperative efforts with chinese environmental engineerings.